Size Dependent Feedback in Littoral Predation

Variations in the rate of recruitment and growth of organisms affects the relative abundance and dispersion of size classes within benthic prey populations. These shifts may precipitate further changes in prey size structure because benthic predators often seek or avoid certain prey sizes. Although size-limited predation is widely recognized, little is known about size-dependant feedback, in which changing prey population structure influences subsequent structure through size dependant predation. Prior studies have suggested hypothetical feedback mechanisms in the interaction between spiny lobsters, Panulirus interruptus, and its prey, the intertidal mussel, Mytilus californianus. The mechanisms are: (1) a positive numerical response of the predators to densities of small mussels, and (2) changes in mussel recruitment rates following the establishment of a canopy of larger adult mussels. Physical gradients of tidal and wave exposure affect rates of mussel recruitment and growth, and they also constrain predator foraging. Therefore, the relative strengths of feedback mechanisms may change over the gradients. This project involves a series of field surveys and experiments which will examine the various feedback mechanisms.